Scholarships for Electrical Engineering and Computer Science (SEECS)

This program is awarding scholarships to full-time students in electrical engineering and computer science who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting high-school students from underrepresented groups including women. Scholars are meeting regularly with faculty and industry mentors who are providing academic and career guidance. The project is increasing the quality, and scope, of student support structures available for recruitment, retention and career placement. Scholars are being offered the opportunity to participate in activities such as undergraduate research experiences and internships. This project is making an impact in undergraduate STEM education in the region.